Advanced Computational Stochastic Dynamic Programming for Continuous Time Problems

The investigator and associates develop large scale
computational procedures for optimal stochastic control problems.
Massively parallel processor and parallel algorithm advances are
essential for managing massive computational and memory demands,
with particular emphasis on large scale applications in ground
water pollution remediation and manufacturing systems.
Implementation of advanced computational techniques, such as
parallelization, graphical visualization, and efficient data
structures make possible the solution of larger dimensional
problems. The emphasis here is on formally justified and useful
computational methods rather than limited highly rigorous
results. The objective is to develop fast algorithms coupled
with massively parallel processing for the optimal feedback
control of general continuous-time nonlinear stochastic dynamical
systems. These stochastic systems include both Gaussian and
distributed Poisson white noise, thus hybrid stochastic models.
Advanced computational treatment of these systems, especially
with Poisson noise for modeling disastrous events, is a
particularly unique feature of this research. The computational
methods are tested on ground water pollution models and
multistage manufacturing systems, but are applicable to a wide
variety of applications, yielding a higher level of robustness
for the computational methods. The numerical approach directly
treats the partial differential equation of stochastic dynamic
programming. New algorithms, including finite element and random
simulations, are developed to alleviate both memory and
computationally intensive demands from the "curse of
dimensionality."
The investigator and associates develop optimal
computational solutions to ground water pollution and
manufacturing problems perturbed by uncertainty. Ground water
and manufacturing problems are examples of grand and national
challenge problems, respectively. In the case of ground water
the cause of uncertainty is the unexpected introduction of
pollution and varying environmental parameters, while in the case
of the manufacturing systems it is the failure and repair of
machines with fluctuating manufacturing parameters. The reason
for seeking optimal solutions is to minimize costs. Large scale
computations are necessary due to the complexity of the governing
physical equations and essential numerical approximations. Since
the cleanup of polluted ground water sites can cost billions
where feasible, optimal solutions could save millions over
nonoptimal methods. Similar savings can be obtained for
just-in-time manufacturing systems that are managed to minimize
costs, enhancing our globally competitive capabilities. Advanced
computing techniques are developed to get optimal solutions using
high performance computation with massively parallel computers.
Graphical visualization is important to make the immense output
usable to the environmental resource or manufacturing plant
manager who would be the prime user.